Seminar on Stochastic Processes 2003

0228824
Burdzy
The 2003 Seminar on Stochastic Processes will be held at the University of Washington from March 27 to 29, 2003. The seminars have become one of the most important regular seminar series for probabilists. They attract and bring together an active group of eminent researchers and young specialists in probability and stochastic processes. This award will provide travel support for participants. The funds will be used primarily for women and junior researchers.